CompBio: Predicting Protein Folding Pathways and Protein Misfolding

Intellectual Merit Protein folding pathway prediction is a very important problem since protein
misfolding has been identified as the cause of several diseases such as Creutzfeldt-Jacob disease,
cystic fibrosis, hereditary emphysema and some cancers. Furthermore, knowledge of pathways for
protein folding can give important insight into the structure of proteins. To make pathway based
approaches to structure prediction a reality, plausible protein folding pathways need to be modeled
and validated.
Our novel approach outlined in this proposal is to start with a folded protein in its final state
and learn how to unfold the protein in an approximately ordered sequence of steps, to its unfolded
state. The reversal of such a sequence then represents a plausible protein folding pathway.
Using the known structure and a fast, graph-based algorithm for recursive splitting of the structure
along its most energetically labile contacts, we are able to develop a general model for topological
unfolding.
We propose to explore the effect on the folding pathway of mutations that are known to cause
(or suppress) misfolding diseases, especially those associated with amyloid fiber formation. We
will calculate the distribution of folding intermediates and then compare these distributions for
natural mutatations that are known to cause amyloid accumulation in the cell.
Broader Impact This proposal builds on a proven track record of success of the PIs, both in
collaborative research and educational efforts. For instance, Bystroff and Zaki have team taught
NSF Chautauqua Summer Course on New Directions in Bioinformatics and Biotechnology, held
anually at RPI (1999-2004). The PIs have a track record of advising and promoting research
activity in under-represented groups. For instance, both PIs jointly supervised a Native American
M.S. student, and Zaki has supervised 7 femaleM.S. students. Currently he is supervising 2 female
PhD students. Bystroff currently has three African-American undergraduate researchers.
The proposed work will be made publically available as a web server, and also open-source
software, that predicts the unfolding pathway. Two full-time graduate students will be trained
on this grant. Undergraduates, including underrepresented groups, will continue to play a large
part in our research efforts. This proposal will support a continuing inter-disciplinary research
team, which has resulted in several joint courses and publications. Much of the preliminary work
described in this proposal is the fruit of this collaboration. Finally this grant will support one of
the nation's strongest teaching programs in bioinformatics.